SHF: Small: Assisting Developers in the Creation and Maintenance of Unit Tests

To test software, developers must perform two activities: test
creation and test maintenance. The first activity, test creation,
consists of developing and implementing a test suite---the set of
tests that will be used to evaluate the software. The second
activity, test maintenance, consists of both understanding existing
test cases and evolving them in response to changes in the application
that is being tested. Despite decades of work, both of these
activities are still expensive and labor-intensive. In this project,
we will address the need for useful developer support for both test
creation and test maintenance by investigating and building
cooperative approaches where automated tools and developers work
together, each focusing on their respective strengths. Improving the
efficiency and effectiveness of both testing activities will be
beneficial in reducing the overall cost of software development and,
at the same time, improving software quality.

This project will contribute to the state of the art by (1) innovating
in the areas of program analysis and natural-language program analysis
and (2) synergistically integrating these two strands of innovations.
First, the PIs will investigate cooperative approaches for generating unit
tests based on developer intent to save developer's time and to lower
the cognitive barrier for writing tests by automating the tedious
aspects of test creation. Second, the PIs will investigate techniques for
improving the comprehensibility of existing tests by automatically
generating various forms of test documentation including descriptive
test method names and both summary and explanatory comments. Finally,
the PIs will quantitatively and qualitatively evaluate and refine the newly
developed techniques to ensure that they are both useful and
effective. The tools and experimental infrastructure developed within
the project will be released, which will let researchers and
practitioners build on the project's results.